The Role of Phytoplankton in the Biogeochemical Cycling of Iodine

Phytoplankton, as dominant primary producers of the world's oceans, are important components in the biogeochemical cycling of many elements. There is a lack of information, however, as to the role of phytoplankton in the biogeochemical cycling of iodine specifically in terms of fluxes, metabolism and reservoir size. This project seeks to address this deficiency by using important marine phytoplankton (diatoms, dinoflagellates, coccolithophores, cyanobacteria) in experiments to determine: 1) iodide and iodate uptake rates (using radioactive 125I); 2) the concentration and chemical speciation of cellular iodine by using iodide selective electrodes, extraction techniques, and 125I labeled cultures; 3) release rates of both volatile (primarily methyl iodide, using gas chromatography with an electron capture detector) and non-volatile cellular iodocarbons (125I labeled cultures), and 4) the presence of haloperoxidases in phytoplankton (spectrophotometric and radioisotopic methods). The data obtained from these investigations will allow for the unambiguous assessment of the degree in which phytoplankton are involved in the chemical speciation of iodine in surface waters and their participation in the transport of iodine from the surface waters to the atmosphere and to deeper waters. This research has application to the marine and atmospheric iodine cycles, which takes on added importance based on past and potential releases of anthropogenic radionuclides of iodine.